MRI: Parents' Work Experiences, Family Processes and Preschool Children's Development in African-American Families

ABSTRACT As the number of children living in dual-earner families continues to increase, it becomes critical to understand the effects of parents work experience on children's development and the processes through which such effects occur. This research will finalize the methodology for a study of the impact of parents' occpuational experiences on family processes and children's well being among African-American families with preschool children. Currently there are two limitations of the work-family literature: (1) a failure to consider the ways in which the cultural context in which families operate may condition linkages between work and family life, and (2) a failure to elaborate the mechanisms through which parental employment impacts children. This support will facilitate instrument development and identification of an adequate sampling frame from which to select respondents. Other scholars, and service providers who have expertise in these two areas will be consulted.